Improvement of Undergraduate Optics Laboratory

The Physics Department at the University of Northern Iowa will improve experiments in two courses, Holography Laboratory and Lasers and Optics. It will add new experimental capabilities in the areas of holography, lasers and fiber optics. These improvements will also support work by students registering for Undergraduate Research which is required as part of the new Bachelor of Science Program. New instrumentation to be used includes open-cavity lasers, an electronic driver for a laser spectrum analyzer (previously purchased), a fiber optics lab instruction system, fiber holders, a laser power meter, a fiber cleaver/splicer, a holography table with vibration isolation, and an interferometer useful for characterizing aberrations of lens and holographic optical elements.